Experimental Validation of Interconnection and Transistor Delay Models for the GaAs-Based Integrated Circuits

Goel During the last few years, GaAs technology has emerged rapidly from basic research to device and circuit development. It is crucial to know the expected propagation delays in an integrated circuit before it is fabricated. To meet this objective, numerical models have been developed that address crosstalk and propagation delays in the parallel and crossing VLSI multilevel interconnections as well as for the transverse delays in the GaAs MESFETs and GaAs/AIGaAs MODFETs. In addition to determining the crosstalk and propagation delays, the models can be utilized to achieve the optimization of the device and interconnection dimensions and other parameters for minimum crosstalk and delays. Validation of these numerical models by comparison of the modeling results with actual experimental observations is critical if they are to be incorporated into GaAs CAD tools. This research effort focuses on the following set of objectives: 1. design and fabrication of several GaAs-based logic circuits to retain the ability to alter the various design parameters; 2. application of the interconnection and the GaAs MESFET delay models recently developed for the determination of propagation delays in these GaAs-based logic circuits; 3. experimental measurements of propagation delays in these circuits and comparison with developed delay models; 4. modification of the interconnection and transistor delay models, as required; and 5. experimental validation of the final models.